Planning Visit for Preparation of International Cooperative Project: Hydrogeochemistry of Copahues Volcano, Neuquen, Argentina

9704200 Varekamp This Americas Program award will support travel and related expenses for Dr. Johan Varekamp, Wesleyan University, Connecticut, to travel to Argentina to plan a cooperative research project on the hydrochemistry of Copahues volcano. Nequen, Argentina in collaboration with Dr. A Bermudez and Dr. D. Delpino, Geologic Survey of Neuquen. In preparation for the research, they will inspect a number of sampling/monitoring sites, research the presence and location of gauging systems in the rivers, get acquainted with logistics and weather of the region, and contact local agencies and authorities. ***